Experimentally Probing the Unknowns of Sonoluminescence

9800989
Putterman
This work is an experiment to elucidate and exploit the hydrodynamic and electromagnetic mechanisms that account for sonoluminescence (SL). The focus is on the observation of picosecond Thomson scattering from the bubble as a probe of the density of free electrons in the bubble.